Collaborative Research: Solid-State NMR Relaxometry in Heavy-Metal Salts

In this collaborative award, supported by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. Cecil Dybowski of the University of Delaware and Prof. Peter Beckmann of Bryn Mawr College will conduct research with their student colleagues on solid-state NMR relaxometry of heavy-metal salts. The goal of the research is to determine the mechanism for the recently-observed NMR relaxation of heavy-metal, spin 1/2 metal nuclei. The ultimate goal of the research is to connect the measured relaxation times for heavy metal nuclei with the physical properties of the host material. The results of this basic research may result in applications to materials research.

Besides the possible broader scientific impacts of the research, the PIs are active in the training of the next generation of women scientists.